Three-Dimensional Modeling of Lowrise Wood-Framed Buildings - A Pilot Study

The objective of this project is to develop a simple but realistic three-dimensional model for nonlinear analysis of lowrise wood-framed buildings subjected to earthquake loading. The new model will help understand the seismic performance of such buildings by predicting such characteristics as strength deformation, ductility and damage potential. The study will lead to a static analysis model for monotonic or cyclic loading, providing a starting point for subsequent dynamic analyses. A macro-element developed for representing the inplane behavior of wood diaphragms will be used to model a majority of lowrise wood-framed buildings. Available test results, possibly from James Cook University, Australia, and elsewhere will be used to verify this model. Various building configurations will be analyzed. The computer program will help evaluate the previous simple methods of seismic analysis, and also the designing of various building configurations. A great majority of the lowrise buildings are light wood-framed buildings for which a reliable tool for the prediction of three- dimensional behavior is nonexistent. The study will lead to improved design standards and design methods which in turn will reduce the dollar loss of this major class of existing buildings in the event of earthquakes. The Principal Investigator is a leader in the field and is expected to make significant contribution to this important subject. An award is recommended.